Mathematical Sciences: Representations of Graphs by Sets

Representations of Graphs by Sets. This work will focus on p-intersection equivalence and general representations of graphs. Randomized algorithm techniques, algebraic graph theory and the probabilistic method will be applied to solutions of problems in the focus area and provide a better understanding of the relationship to computer science and other areas of mathematics.